Studies in Statistical Mechanics

9523266 Lebowitz This grant is supported by the Materials Theory Program in the Division of Materials Research, the Mathematical Physics Activity in the Physics Division and the Applied Mathematics Program in the Division of Mathematical Sciences. Research will be conducted on a variety of problems in statistical mechanics with the overall objective of contributing to the understanding of macroscopic matter from a microscopic basis. Problems to be considered include: properties of macroscopic systems carrying steady state currents; kinetics of phase segregation in alloys and fluids including elastic and hydrodynamical effects, respectively; equilibrium statistical mechanics of low temperature phases in quantum systems; structure of energy levels in typical integrable and chaotic systems; spatial structure of diffusion dominated reacting systems; phase diagrams of classical multicomponent models with vacancies and elastic effects; and, fundamental problems in the quantum description of the time evolution of macroscopic systems. %%% This grant is supported by the Materials Theory Program in the Division of Materials Research, the Mathematical Physics Activity in the Physics Division and the Applied Mathematics Program in the Division of Mathematical Sciences. Research will be done on a number of problems in statistical mechanics which will lead to a better understanding of the relationship between the large-scale behavior of matter, e.g., fluids, and its underlying particulate nature, e.g., molecules. This research is fundamental, although its outcomes should contribute to a better understanding of many problems of practical interest. ***